Visualizing Abstractions

Abstractions are the basis for most of the ways that programmers look at their programs, data, and execution. Most of these abstractions have a visual component. This work envisions a system that will allow programmers to rapidly define abstractions and their accompanying visualizations. Such a system would have immediate applications to programming environments, data bases, parallel programming, and education. This project will investigate what it means to design such a system and to explore many of the underlying problems that must be solved before such a system can become a reality. In conjunction with other research projects, it will lead to an abstraction-based visualization environment to experiment with various solutions to these problems and to evaluate the underlying concepts.